Periodic Orbits of Hamiltonian Systems, the Almost Existence Theorem, and Poisson Topology

Abstract

Award: DMS-0307484
Principal Investigator: Viktor Ginzburg

The present proposal focuses on two projects closely related to
the principal investigator's previous work funded by NSF
grants. These projects are the problem of existence of periodic
orbits for Hamiltonian dynamical systems and the study of
topological properties of certain Poisson manifolds. The first
problem Viktor Ginzburg addresses in this proposal is the
investigation of the size of the set of regular energy values on
which a Hamiltonian system does not have periodic orbits. By the
almost existence theorem, this set must be of zero measure and
from counterexamples to the Hamiltonian Seifert conjecture it is
known that this set may be non-empty. Thus the question is to
bridge the gap between these two results. Another series of
problems discussed in the proposal concerns the existence of
periodic orbits for Hamiltonian systems of a special nature,
including those describing the motion of a charge in a (strong)
magnetic field or, more generally, the existence of periodic
orbits near Morse-Bott non-degenerate symplectic extrema. These
problems are closely related to the investigation of the
(relative) Hofer-Zehnder capacity function and the Floer homology
of certain Hamiltonians. The objective of the proposed research
in the area of Poisson topology is to study connections between
the geometry of Poisson structures and topology of underlying
manifolds.

Hamiltonian dynamical systems describe many classes of physical
processes in which dissipative forces can be neglected. For
example, planetary motion in celestial mechanics and some
electro- or magneto-dynamical processes can be, and usually are,
treated as Hamiltonian dynamical systems. One of the classical
subjects in the theory of dynamical systems is the study of
periodic orbits (i.e. cyclic motions). Periodic motion is the
simplest and most common type of motion after equilibrium. It is
believed that a vast majority of Hamiltonian systems have
periodic orbits and systems without such orbits have only been
recently discovered. Yet, in all but simplest problems, finding
periodic orbits requires the use of advanced and powerful
mathematical methods. The investigation of periodic orbits lies
at the very core of the modern theory of Hamiltonian dynamical
systems. One of the main themes of the proposal is determining
how large the collection of periodic/aperiodic energy values can
be and showing that systems of a particular type carry periodic
orbits of all energies. This class of systems includes those
describing the motion of a charge in a magnetic field and the
proposed research has potential applications to physics and
mathematical aspects of mechanics. The last part of the proposal
concerns the investigation of connections between geometrical and
topological properties of a certain class of spaces arising in
the study of systems with symmetries and in quantum mechanics.